Showcase for NSF DUE CCLI Projects at the ACM SIGCSE Conference

This project is providing opportunities for recipients of NSF DUE CCLI grants to present their funded projects at the 2004 and 2005 SIGCSE Conferences. These conferences are the annual Technical Symposia on Computer Science Education sponsored by the ACM Special Interest Group on Computer Science Education (SIGCSE) and are international events held annually in the United States. They are among the few events in the world dedicated solely to issues of undergraduate computing education and attract over 1000 educators from primarily the United States and Canada with a growing worldwide participation. The Showcase is an opportunity for attendees to see the work done by CCLI-funded projects and learn about new curriculum and materials they can use in their home institutions.